Workshop on Vision and Control

This award funds a workshop to explore the research needs related to the interface between computer vision and control. The workshop will be held June 23-25, 1997 on Block Island, Rhode Island. A small number of key researchers from the computer vision and control communities will come together to examine the topics which bridge these two domains. Their presentations and discussions in working groups will undertake to delineate the common ground and to challenge one another with fundamental unresolved problems. The results of the workshop will appear in a widely distributed report on research directions in vision and control.